The Traveling Electronic Classroom -- A Planning Grant

9454198 Friedman The New York Hall of Science, in conjunction with the Computer Museum and the Oregon Museum of Science and Industry, is developing further the "Traveling Electronic Classroom" project concept. The project has the goal of introducing parents, teachers, and the general public to ways in which new technologies can support educational reform. Activities in the planning phase include: o Convening the Advisory Board to review and refine the project o Defining more precisely the target audiences and strategies for reaching parents, teachers, and underserved populations o Performing additional front-end analysis of project need o Reviewing known studies of the impact of workshops and exhibits in introducing new educational technologies o Defining further the exhibit surround and exhibition o Developing strategies for continuously updating the exhibition o Developing further the workshop components o Developing detailed evaluation plans